Engine Cycle Analysis in Engineering Technology

The scientific equipment associated with this project greatly enhances the Applied Power Systems course by adding an increased level of depth to the study of expansible chamber internal combustion engine systems. The engine cycle analyzer, consisting of a crankshaft position encoder, a cylinder pressure transducer and a microprocessor system, allows students to collect cylinder pressure and volume data during testing. The unique contribution this device makes is not only tabulated but also graphically plotted pressure and volume curves for the entire operating cycle of an initial combustion engine.